SGER: Participation in Italian Ross Sea Expedition

This SGER proposal is an outgrowth of collaboration between Horn Point Laboratory,
University of Maryland Center for Environmental Science and the University of Trieste and
the Laboratory for Marine Biology, Trieste, Italy. It is to support the participation of
DK Stoecker and a graduate student in an Italian expedition to the Ross Sea during the
austral summer 2002-2003. Techniques which have been recently developed to investigate
the autecology and population dynamics of temperate, coastal bloom-forming algae will be
applied to polar protists from the Ross Sea. This collaboration presents a tremendous
opportunity to compare the role of microzooplankton grazing in bloom dynamics in temperate
and polar systems, determine if polar microplankton have ectocellular protease activity
and to obtain samples of the photosynthetic ciliate, Mesodinium rubrum and its crytophyte
algal "prey" from the Ross Sea for molecular analysis. Futhermore, the cruise would
contribute to the education of a graduate student in polar science and provide material
for his dissertation. It would also contribute to continued collaboration between UMCES
and the Marine Biological Laboratory in Trieste, Italy.